Unidata: 1993 to 1998

9218790 Fulker The purpose of this proposal is to continue Unidata's well established role of supporting universities and to undertake a limited number of new initiatives. The mission of the Unidata Program is to empower universities, through innovative applications of current computing and networking technology, to make the best use of atmospheric and related data for enhancing education and research. To this end, the Unidata Program Center and the university community have jointly built a nationwide computing and communications system that provides universities with easy, cost- effective access to atmospheric data and has transformed how the atmospheric sciences are taught on campuses across the nation.